Connection to NSFNet

Walla Walla College is establishing a connection to NSFNET via a 56,000 bits per second line through the NorthWestNet mid-level network. The connection enables the school's faculty and students to communicate and collaborate with the national scientific and educational community, and to access network resources. Areas of science to be addressed on the Internet by Walla Walla College include physics, computer science, engineering and chemistry. The library also expects to benefit from the connection. This award funds part of the costs for two years.***